The Hilbert Scheme of Points in Higher Dimensions

Patterns in the world can be described both by geometric spaces and by algebraic equations. It is a challenge to find how to read off the geometric properties of a space from its defining equations. The project will make new advances on the problem, in both conceptual and computational ways. As part of the project, graduate students will be introduced to mathematical research.

The Hilbert scheme of points classifies all zero-dimensional closed sub-schemes of a given algebraic variety.
The principal investigator and collaborators will prove the first systematic results about the topology of the Hilbert scheme of points on a high-dimensional variety. In another part of the project, the principal investigator and graduate students will explore the classification of Fano varieties by a new exploratory, computational method, using computer calculations on a K3 surface.